SSC: Summer Science Camp - Southwest Texas State University

SSC-9353157 Southwest Texas State University San Marcos, Texas Kroschewsky, Julius Southwest Texas State University conducts the "Hands-on Aquatics Summer Science Camp" for fifty seventh grade Black and Hispanic students from rural central Texas annually. The project emphasizes the interdisciplinary relationships among biology, chemistry, physics, geology, mathematics and computer science through carefully selected field and laboratory experiments and observations focusing on the fresh-water environment in the nationally acclaimed San Marcos River. The project includes career counseling, daily role model interaction with Black and Hispanic students, faculty, and practicing scientists, and hands-on research experience.